Stratospheric Pollutant Ion Composition Experiment

This research involves the design and testing of instrumentation for the study of the composition and altitude distribution of the positively and negatively charged ionic species in the stratosphere in a series of balloon flights. Each payload carries separate cryogenically pumped magnetic sector- field mass spectrometers for positive and negative ion measurements. Mass ranges examined extend from 35 to 700 amu with a resolution of + 1 amu to 500 amu and a sensitivity of 1 ion/cc. Specific project objectives include (a) positive identification of large cluster ions in the region 20-40 km, (b) determination of trace gas (pollutant) concentrations from recorded ion spectra, (c) and a systematic search for multi ion complexes (because of their suggested importance in linking solar activity and the earth's climate). This grant provides supplemental funding to extend work under Grant ATM-8503560. Instrumentation developed under that grant was balloon-flown twice, but ballooning problems prevented the acquisition of data. Combined with funds residual from the earlier grant, this award will provide for another balloon flight.